US-Turkey Planning Visit: Collaboration on Integrated Routing and Flow Control for Traffic Networks

This award supports a planning visit by Dr. Altug Iftar, of the Department of Electrical and Electronics Engineering at Anadolu University in Turkey, to visit Ohio State University to meet with Dr. Hitay Ozbay, of the Department of Electrical Engineering. The purpose of the visit is to develop a collaborative research activity on an integrated routing and flow control algorithm for traffic networks. Little research has been done on the integration of routing and flow control algorithms, and the results of this study are expected to yield useful results that can be applied to traffic control, communications, and manufacturing systems.